Collaborative Project: The Properties of Low Surface Brightness Galaxies

This project, by a group of outstanding young observational astronomers, aims at an understanding of the properties of extremely faint galaxies. These objects dominate the universe in terms of numbers, although their contribution to the total mass is poorly known. Indeed, most of our knowledge of star formation in external galaxies, and of galaxy properties in general has come from studies of systems which may not be typical. These workers will explore the properties of these much more numerous objects by both optical and radio means. Preliminary work by these investigators has already resulted in the discovery of the two largest, most gas-rich spiral galaxies known, both systems of very low surface brightness.